Imaging Fabry-Perot Interferometer Measurements of the Mid-Latitude Mesosphere and Lower Thermosphere

There is a dearth of measurements on the dynamics and chemistry of the mesosphere and lower thermosphere, which are the regions in the 70 to 120Km altitude range, because the region is too low for satellites and too high for balloons. The region is closely coupled to the stratosphere below and the upper thermosphere above, and is strongly affected by tides and waves propagating up from the lower atmosphere, and particle precipitation and electric currents originating in the magnetosphere. An opportunity to obtain measurements of the winds, waves and temperature structure of this region has arisen, using an advanced optical interferometer on loan from the University College London, to be set up at a mountain site in Utah. The measurement will be supported by global numerical modelling activities in the USA and UK.